High Performance Software Components for Scientific Computing

This project will advance the state of the art of high performance computing by the refinement and application of software component technologies. The project will use these technologies to build a high-performance library of generic components with the performance and flexibility required for complex scientific applications.

Three technical thrusts will support this approach. The researchers will develop and extend generic programming analysis and design methodologies to create component taxonomies for scientific computing, particularly for denoting higher-level domain abstractions and formally specifying their interfaces. Generative optimization will exploit these abstractions to automate performance tuning and optimization, thus avoiding the traditional loss of computational efficiency from high-level abstractions. Finally, library development will create highly parameterized components that offer maximum functionality and customizability for areas such as numerical linear algebra, multi-dimensional arrays, tensor operations, and stencil operations. Through the use of generative techniques, the library will be highly optimizable and will offer high performance at a reasonable development cost. Through the use of generic programming techniques, the library will incorporate parallel processing capabilities.